Dynamics of Electronically Excited States. Models for Chemical Reactivity

The Experimental Physical Chemistry Program supports the research group of Professor Pratt in a continued investigation of high-resolution electronic spectroscopy of large organic molecules. The information gained from these investigations is leading to significant quantitative tests and dramatic qualitative improvements in our understanding of intermolecular energy flow in large molecules. At the studied excitation energies of 3-4 eV and the spectroscopic resolution of a few MHz, the discrete spin-rotation-vibration energy levels of excited electronic states are imbedded in a higher density manifold (or even a quasi-continuum) of levels belonging to one or more lower electronic states. Couplings between these manifolds permit rapid occurrence of chemically interesting processes; the research attempts to extract information about these couplings from eigenstate-resolved spectra.